Asymptotic group theory and dynamics

The project studies infinite groups of symmetries and their large-scale properties. One fundamental question concerns their growth: how many distinct group elements, or symmetries, can be obtained by successively applying a fixed set of generators, or basic symmetries? This number may grow polynomially, exponentially, or at an intermediate rate between the two. The intermediate case remains poorly understood, and one aim of the project is to construct new groups with intermediate growth. Symbolic dynamical systems offer a promising framework for discovering such groups, including through computer-assisted methods and AI. Another direction of the project is the study of the long-term behavior of random walks on groups, i.e., processes obtained by applying generators at random. In this context as well, properties of symbolic dynamical systems have already proved to be useful. The PI is involved with training graduate and undergraduate students as well as K-12 outreach, and plans to run a summer school in group theory and dynamics.

The project studies asymptotic properties of groups, such as word growth, amenability, and the behavior of random walks, using topological dynamics. The PI aims to develop new tools for studying groups via asymptotic properties of orbital graphs of their actions on topological spaces, as well as through other properties of topological dynamical systems. For example, the recently developed method of DAG-words, introduced by the PI and collaborators, provides an explicit approach to estimating the growth of groups associated with substitutional dynamical systems. This opens the possibility of using neural networks and general-purpose AI models to search for groups of superpolynomial growth that grow more slowly than the currently known examples of intermediate growth. A further goal of the project is to deepen our understanding of non-elementarily amenable groups (all known examples of which currently are of dynamical origin).